SBIR Phase I: High Temperature (400°C) Instrumentation Amplifier

This Small Business Innovation Research Phase I Project addresses the need for an instrumentation amplifier operating at high temperature for control applications. We propose to demonstrate an amplifier operating at temperatures above 400 degrees C by using transistors fabricated from a new wide bandgap semiconductor composed of Aluminum Gallium Nitride (AlGaN). SVT Associates has already demonstrated operation of transistors in this material system at 425 degrees C. The Phase I effort seeks to demonstrate the key components of the integrated amplifier, namely the transistor, the resistor, and the capacitor. These components would be characterized as a function of temperature and used to fabricate a hybrid version of the first stage of the amplifier (a differential pair amplifier). The Phase II effort will involve the design, fabrication and testing of an instrumentation amplifier operating at 400 degrees C.
The proposed amplifier could be combined with sensors operating in harsh, high temperature locations such as geothermal/oil wells, turbine engine control, avionics, industrial process control, nuclear reactor control, boiler combustion control systems, automotive underhood electronics and space based power systems.